CAREER: Adaptive Intrusion Detection Systems

Intrusion detection is a critical component of the defense-in-depth
network security mechanisms. Current intrusion detection systems
(IDSs) are ineffective against new and sophisticated attacks.

The key objective of this research project is to develop the
algorithms, tools, and system architecture for adaptive IDSs. An
adaptive IDS needs to detect new attacks and adjust to changes in
normal operations. Towards this end, an information-theoretic based
anomaly detection framework is investigated. The approach is to first
compute the regularity of normal data using information-theoretic
measures, then select features and construct a detection model
according to the regularity measures. An adaptive IDS needs to also
self-monitor its run-time workload and performance, and dynamically
reconfigure its components to provide the best detection capability
given the limited resources. Towards this end, performance monitoring,
load-shedding, attack scenario analysis, and cost-benefit analysis
techniques are investigated.

Through the publications and algorithms and tools from this research,
researchers and practitioners can learn the benefits and techniques of
adaptive IDSs. This research also makes important contributions to
related fields, e.g., survivable network systems and smart
auditing. Ultimately, the society will benefit from the more effective
and robust security mechanisms.